Sixth International Conference on Cognitive Modeling Doctoral Consortium (ICCM 2004); July 2004; Pittsburgh, PA

This grant will support participation of doctoral students selected to participate in the Sixth International Conference on Cognitive Modeling (ICCM-2004) Doctoral Consortium, which will be held on July 30 thru August 1, 2004 at the University of Pittsburgh and Carnegie Mellon University in Pittsburgh, Pennsylvania. Students will present results of their research, receive feedback from a panel of established researchers in their field, and receive guidance on future research directions.